RIA: Nonlinear Dynamics of Flexible Bladed-Disk/Shaft Systemas Related to High Speed Turbomachinery

This project focuses on assessing the influence of nonlinearities on the dynamical behavior of rotating flexible bladed disk/shaft systems. Such systems are affected in a nonlinear sense by blade material, support mechanisms, and clearance. The research goal is to determine the impact of these nonlinearities on turbomachinery design. Previous work in nonlinear rotordynamics has concentrated separately on shaft vibration or on blade vibration, and has neglected coupling dynamics between them. Furthermore, work in this area typically consists of perturbation analyses which is valid only for motion about some operating point. In this project, nonlinear models are be developed and their global dynamical behavior are be explored. Experimental verification of the analytical work is included in this work.